Parametric Empirical Bayes Point and Interval Estimation in Small Area Estimation from Complex Surveys

This collaborative research investigates various problems associated with parametric empirical Bayes point and interval estimation and measure of uncertainty of a parametric empirical Bayes small-area estimator when the data are obtained from a complex survey. In addition, the investigators will conduct three real world applications of parametric empirical Bayes analysis: (1) Estimation of U.S. Census undercount; (2) Estimation of the median income of four-person families for fifty U.S. States and the District of Columbia; and (3) Estimation of the unemployment rates for fifty U.S. states and the District of Columbia. There is a growing demand by many U.S. and overseas federal agencies to produce reliable small area statistics for various subgroups of a population. Usual design-based survey estimators are not suitable for this purpose since a typical sample survey being designed for a large population contains very little information regarding the sub-populations or small areas of interest. The problem is generally referred to as a small-area (domain) estimation problem in the sample survey literature. Development of reliable small-area statistics and suitable measures of uncertainty using information from complex surveys is extremely important. This research will advance small-area estimation methods.